Brigham Young University To Join the I/UCRC CHREC Center

This planning grant serves to establish the basis for Brigham Young University to join the existing Industry/University Cooperative Research Center for High-Performance Reconfigurable Computing. The Center currently includes the University of Florida as the lead university and George Washington University as a research site. Brigham Young University is well positioned to complement the existing member institutions with it historical focus and expertise in High-Performance Embedded Computing application of Reconfigurable Computing and the development of design and debug tools for reconfigurable computing.